Rural Education in Alaska

The Arctic Division of the American Association for the Advancement of Science holds an annual conference either in Alaska or western Canada. The 1988 Conference will be held in Fairbanks, Alaska, October 7-10, 1988. The theme of the Conference is Science Education and is being organized by the University of Alaska in conjunction with the Fairbanks North Star Borough School District. This project seeks funding to provide travel assistance to secondary school educators from the far-reaches of the State of Alaska. The Conference is being held in Fairbanks to coincide with the local teacher-in-service training periods. Several hundred secondary school educators are expected to attend and be joined by several hundred scientists from Alaska and Canada and speakers from non-Alaskan institutions and organizations. Workshops, special sessions and keynote speakers will cover a wide range of science education needs and solutions unique to remote northern regions, including content, concepts, delivery techniques and training. Scientists and educators at all levels will have the opportunity to discuss approaches, and successes and failures in motivating rural and native students for science and engineering careers.